RUI: The 1992 Presidential Election in Prime Time

In the fifty years of social scientific examination of voting decisions in presidential elections, the mass media have been transformed; so too has the presidential election campaign. In addition to newspapers and magazines; and the "two-step flow" of news from opinion leaders to the mass public, we now have an array of broadcast media that bring citizens virtually in direct contact with the presidential campaign. The historical political staple of lengthy campaign speeches has been supplemented, if not supplanted, by 10-second "sound-bites" and elaborately produced 30- second advertisements. The campaign itself, which was once limited largely to a fall contest between two major party nominees, now stretches through a calendar year, with voters taking a direct role in nominations and the news media taking over the task of winnowing the field of presidential candidates. Despite these changes in the campaign process, there have been few studies that focus on how voters make sense of the new mass media campaign, what information and understanding they acquire, and how they decide to vote. The bulk of scholarly attention has been concentrated on campaign coverage in prestige newspapers and network news, ignoring the role of advertising, and neglecting the local newspapers and local TV news on which more and more Americans depend on for information. This investigation seeks to bridge this gap by looking closely at voters and their media environment during the 1992 presidential election campaign in four diverse communities: Los Angeles, California; Boston, Massachusetts; Winston-Salem, North Carolina; and the twin towns of Fargo, North Dakota-Moorhead, Minnesota. These sites represent a range of very small to very large media markets in each major geographic region of the country. Using a variety of methods, the researchers investigate how people in these diverse communities use campaign news and political advertising, as well as their contacts with other people to arrive at voting decisions. Through content analysis of local newspaper and television news and the political advertising broadcast in that media market, the investigators will compare and contrast the information that is most available to voters in their communities throughout the campaign. Particular attention will be paid to the primary election phase. Voter decision-making will be explored in public opinion polls, focus groups, and periodic in-depth interviews with representative panels of citizens in four communities throughout the campaign season. The aim of the project is to gain a fuller understanding of the news media environment, and how citizens become interested in the campaign, acquire information, form impressions of the candidates, decide what is important, take positions on campaign issues, and, ultimately, decide how to vote.